RUI: Learnability: Framework, Concepts, Algorithms

This project encompasses three lines of research, all related to computational learning theory. (1) The well-known ``probably approximately correct'' (PAC) model of learning---and other models---have provided a robust framework within which various notions of learning have been formally analyzed. However, learning is a broad concept, and some senses of learning have not been captured well by existing models. This project develops a framework for analyzing one such type of learning, that of learning search-control rules within the context of task planning. In addition to developing this framework, lower and upper bounds on learnability within the framework will be sought. Based on preliminary work, graph-theoretic approaches appear to be particularly promising in producing such bounds. (2) Several fundamental questions within existing learning models still remain open. Some of the best answers to related questions have been obtained using Fourier analysis of function classes along with associated Fourier-based algorithms. Thus, Fourier and other techniques will be applied to several of these remaining questions. (3) Fourier-based algorithms that have been produced thus far, while efficient in the sense of running in polynomial time, are not used in practice in part because of somewhat large exponents in the running time. This project seeks to produce algorithms with noticeably better running times.